"Mr. Clean" Conferences

9320231 Dennis "Mr. Clean" Conferences are held in the United States twice a year at which industry/government/university researchers and practitioners/users report on new advances in clean manufacturing, waste management and control, and environmentally benign synthesis and processing. These are technology transfer conferences in which participants share information on the above topics for the benefit of all attendees. The next three conferences are as follows: Nov. 30 - Dec. 2, 1993, Santa Fe, NM hosted by Los Alamos National Laboratory, Spring 1994, Kansas City, MO hosted by the Allied Signal Corporation, Fall 1994, Houston, TX hosted by NASA, Kennedy Space Flight Center ***